International Workshop on Regional Culture in Latin AmericanCities to be held in Austin, Texas in January, 1990.

This award supports an international workshop on regional culture in Latin American cities to be held in Austin, Texas in January, 1990. The U.S. organizer is Lane Hirabayashi of San Francisco State University. His counterpart is Teofilo Altamirano of the Catholic University of Peru. The workshop will focus on how migrants draw upon values and forms of social organization from their areas of origin to facilitate adaptation to urban life. The participants consist of ten scholars who have carried out first-hand field work in large Latin American cities, who have a strong interest in comparative analysis, who have not had a chance to work together or coordinate their research results and who have emphasized countries where there is clear evidence of ethnic identification on the part of rural-urban migrants. These countries are Bolivia, Ecuador, Mexico and Peru and there is a representative from each one among the workshop participants. All of these scientists and the U.S. experts have published extensively on urban adaptation and each will write a specially commissioned paper on the regional culture in the Latin American city of their expertise to reflect the dynamics of rural-urban linkages. Because of the impact such studies have on understanding the growing problem of urban migration in developing countries, this workshop is a timely and important one for the Science in Developing Countries program.